Spectral and Transport Theory of Schrodinger Operators

This research involves localization type effects for ergodic Schrodinger
operators, the general study of spectra and wave functions of
multidimensional Schrodinger operators, and also of the transport
phenomena of quasiperiodic operators and two-dimensional magnetic
operators in the integer quantum Hall regime. An important objective is to
develop nonperturbative methods of proving localization type effects for
Schrodinger operators with deterministic potentials. The other goal is to
study the relation between spectral and quantum-dynamical properties and
behavior of the generalized eigenfunctions, particularly outside the
localization range and in the multidimensional case. Another goal of the
proposed research is to study singular continuous spectrum that exhibits
critical behavior and/or anomalous transport, particularly for models where
it appears for critical values (or intervals) of the parameters.

The proposed research is centered around the fundamental properties
of disordered systems that serve as models of systems with impurities.
Deterministic, particularly quasiperiodic, potentials are most often used
to model quasicrystals. In order to be able to understand much of the
experimental data on quasicrystals, it is particularly important to
investigate the transport coefficients like the electrical and heat
conductivities of the microscopic models. Such an understanding is most
helpful for finding new materials with desired physical properties. This
may lead to various industrial applications (the first one nowadays being
the covering of pans replacing the conventional Tefal film). Disordered
systems are also used in modeling many other micro and macro effects: from
quantum localization to earthquakes. Our research concerns the anomalous
spectral and diffusive properties of quasiperiodic and other deterministic
structures. The quantum Hall effect is since 1985 used by the National
Bureau of Standards to define the Fine Structure Constant (and hence the
electrical charge of an electron). It is still not well understood why the
experiment can be reproduced with a relative error of only $10^{-8}$. Our
research is concerned with a microscopic theory of the quantum Hall effect
that is aimed at getting deeper insights of this phenomena.